"Pre-conference symposium for the 23rd International Conference on Supersymmetry and Unification of Fundamental Interactions " in Tahoe City, California, August 23-29, 2015.

SUSY 2015 (The 23rd International Conference on Supersymmetry and Unification of Fundamental Interactions) is the primary yearly conference for the presentation of ideas regarding new physics beyond the Standard Model (not just supersymmetry) and experimental results relevant thereto. It covers not only high energy physics but also related areas of cosmology and the early universe. It attracts 300-400 top researchers (both theorists and experimentalists, students through senior faculty) in all new physics areas. The conference lasts for 6 days and includes both plenary talks (about 25 thirty-minute talks) and seven daily parallel sessions (in combination containing of order 150 talks, each being of order fifteen minutes). The conference is essential for all researchers in the various fields to remain fully up-to-date with respect to the progress made by and ideas being developed by other researchers in the many sub-fields of relevance. It is the critical venue for dissemination of recent and planned research. This symposium will take place for five days during the week prior to SUSY 2015. It is a series of pedagogical talks by prominent physicists working in areas covered by the SUSY 2015 Conference. It is designed to prepare advanced graduate students and junior postdocs in the subject areas that will be covered by the conference. Pre-SUSY symposia have been an important and much needed component in the preparation of these young physicists for a productive research career.

Society benefits in many direct and indirect ways from support of theoretical and experimental physics in the areas on which the SUSY 2015 conference focuses. The conference re-inforces and motivates the newest generations of physicists pursuing research careers in this and related very highly sophisticated fields. It is focused on ideas that potentially explain the most elementary particles and most basic forces of nature. Such understanding has often yielded substantial benefits to society. The developments in experimental techniques, detectors and accelerators necessary for probing the particles and forces, have frequently led to very substantial spinoffs. Many medical advances have resulted from the very sophisticated detector and accelerator developments needed for the field to progress. This pre-conference symposium will help educate graduate students and postdocs in the areas covered by the conference, allowing them to fully participate.